The Nelder-Mead Simplex Method: Theory, Performance, Context, and Applications

The Nelder-Mead ``simplex'' method, first published in 1965,
is one of the world's most popular techniques for unconstrained
minimization of nonlinear functions without using derivatives;
Nelder-Mead lies at the heart of hundreds, probably thousands,
of scientific and engineering applications that involve
optimization.

The virtues of the Nelder-Mead method include simplicity of
description and implementation, and excellent ``best case''
behavior, especially in achieving rapid improvement with
a relatively small number of function values. Its flaws
include stagnation or failure, typically slow and painful.
And, despite almost 40 years of widespread use, its
fundamental nature remains unclear and even mysterious.
The proposed research aims to improve understanding of
the Nelder-Mead method in both theory and practice.

No theoretical convergence results for the original
Nelder-Mead method were obtained until 1998, and its
known theory today is limited (to dimensions one and
two) as well as relatively, perhaps unavoidably, weak.
It is almost embarrassing that the mathematical and
convergence properties of this nearly ubiquitous, seemingly
simple method are not fully settled. In attempting to
produce the needed theory, the proposed research will apply
tools like discrete dynamical systems and characterization of
geometric properties, which are nonstandard in analysis of
unconstrained optimization.

Since non-derivative optimization methods have been
developed in the last 15 years that possess essentially
complete theories, one might wonder why it is worthwhile
to study the Nelder-Mead method. The reason is that,
despite its lack of known theoretical underpinnings,
Nelder-Mead very often produces a good enough answer
more rapidly than its competitors. But Nelder-Mead does
not consistently work well---its performance is sometimes
excellent, sometimes terrible---and the reasons for this
variation have not been examined in detail. A second part
of the proposed research is to explore what happens (and
why) to the method on a large, carefully selected set of
test problems. A hope is that ``Nelder-Mead-like'' methods
will emerge that retain the flavor and desirable properties
of the original but overcome its worst flaws.

Given the popularity of the Nelder-Mead method, the result
of the research should be improved non-derivative optimization
methods that are capable of reliably solving a variety of
scientific and engineering problems.

The principal investigator was one of the first to prove
theoretical results about the original Nelder-Mead method
and to focus attention on the Nelder-Mead method, which
was scorned or ignored for many years by the mainstream
optimization community. While at Bell Labs, she gained
practical experience by implementing the Nelder-Mead
method in a successful product (the ``WISE'' tool for
wireless system design).

Because the Nelder-Mead method is easy to visualize and
explain, it is an obvious candidate for Web-based dissemination
of animations and explanatory material that can be used in
graduate and undergraduate education, as well as by
practitioners, in science, engineering, and medicine.